Computability and definability in mathematical logic

ABSTRACT

Cholak plans on studying the interaction between definability and
computability in various structures in mathematical logic. Primarily,
but not totally, Cholak will focus on the collection of all computably
enumerable sets under the inclusion relation and the computably
enumerable degrees under Turing reducibility. Cholak's long range
goals are to provide a complete understanding of the relationships
between these two structures and their automorphisms and definable
orbits.

Cholak's main focus is on definability and computability. These
notions are both important in measuring the complexity of an answer to
a mathematical problem. One develops an intertwined hierarchy of
definability and computability. Only answers which lay on the lowest
level of complexity are computable and even then are not always
feasibly computable given today's computers. Answers of higher
complexity provide useful mathematical information and allows the user
to test the limits of their mathematical techniques.